Femtosecond Spin Dynamics in Magnetic Semiconductor Quantum Structures

9500460 Samarth The effects of reduced dimensionality a quantum confinement on fundamental magnetic and electronic spin dynamics are being investigated in quantum structures fabricated from II-VI diluted magnetic semiconductors (DMS). Magneto-optical spectroscopy probes spin-dependent phenomena such as carrier spin-flip scattering, spin dependent electronic tunneling and localization, magnetic polaron formation, and spin-lattice relaxation processes. The program combines state-of-the-art techniques in femtosecond optical measurements, integrated DCSQUID technology and epitaxial materials fabrication to obtain a real-timed view of dynamical behavior in quantum magnetic systems. % % % This project involves optical spectroscopy on very small particles that are both magnetic and semiconducting. The small size of the particles influences the electrical properties of the particles in interesting ways. In addition, the electronic properties of the particles are influenced by their magnetism. This means that the semiconducting properties can be tuned by an external magnetic fields. The electronic properties are being investigated by ultra- fast optical techniques. The state-of-the-art materials and experimental techniques are of interest for fundamental physics, and may lead to new devices for electronic and magnetic applications. ***